EMSW21-RTG Research Training in Geometry and Topology at Michigan State University

Abstract

Award: DMS 0739208
Principal Investigator: Ronald A. Fintushel, Efstratia
Kalfagianni, Thomas H. Parker, Jon G. Wolfson

The goal of this proposal is the enhancement of the research
training environment in geometry and topology at Michigan State
University, building on our past success. The Geometry/Topology
Group at MSU has a long-standing commitment to excellence in
graduate and postdoctoral training: we have produced some
outstanding graduate students, and we have been fortunate to have
recruited and mentored exceptional postdoctoral fellows. Our
goal is to use increased resources to improve: (1) Recruitment at
all levels --- undergraduate, graduate, and postdoctoral. (2)
Graduate training, especially in terms of the diversity of
seminars, course offerings, and reducing the time to obtain a
Ph.D. (3) The experience of postdoctoral fellows and their
preparation for a tenure-track position. (4) Undergraduate
participation with the Geometry/Topology research group. (5)
Interaction among students and faculty at all levels. (6) The
research environment at all levels with a regular program of
seminars and visitors.

The graduate students and postdoctoral assistants who will be
mentored under this proposal will contribute to research in
geometry and topology, using a wide variety of techniques
including gauge theory, geometric analysis, pseudoholomorphic
maps, knot invariants, surgery techniques, 3-manifold topology,
and mapping class groups. Faculty at Michigan State University
as well as former students and postdoctoral assistants have taken
part in important advances in these rapidly progressing areas,
and it is expected that future students and postdoctoral fellows
will continue in this direction. To further stimulate research,
the MSU Geometry/Topology Group will initiate new programs and
enhance existing programs for undergraduate and graduate students
and postdoctoral fellows. The key to these programs is the
atmosphere of collaborative learning that has been fostered by
the Geometry/Topology Group.

This proposal will address the production of research
mathematicians and teachers of mathematics who are interested in
geometry and topology. This proposal will support 5 new graduate
students and 2 new postdoctoral associates as well as one postdoc
and one graduate student who are being supported by our current
RTG grant. Our aim is to create an environment which encourages
all involved to become better teachers, better expositors, and
better researchers, and encourages those entering mathematics to
stay in the field.